Conference In Mathematical Logic AT UNT

We are proposing a conference in mathematical logic to be held in October 8-10, 2004 at te University of North Texas. This will be during a two year period of special focus in logic by the mathematics department at UNT. We anticipate a conference of a fairly inclusive nature covering a variety of fields within mathematical logic.